EarthCube RCN for Marine Ecological Time Series (METS)

This project will support coordination efforts that bring together participants in large- and small group formats to foster the necessary dialog to develop Findable, Accessible, Interoperable, and Reusable (FAIR) data solutions and practices. The project will include a Consensus Building Workshop and METS Data Working Group to develop reference implementations of a data model for adoption by the METS community; formation of regional METS user networks and a Broadening Users Workshop to identify the needs of a broader range of data end users and associated data interfaces and tools to meet those needs; and a Data Hackathon to build capacity to ingest, analyze, and integrate METS data with other disciplinary and cross-disciplinary data to accelerate scientific discovery.

This project will develop community consensus for a FAIR METS data model. The METS RCN will leverage the wealth of oceanographic coordination and community building experience and staff capacity of the Ocean Carbon and Biogeochemistry (OCB) Project Office and the infrastructure, expertise, and extensive METS data handling experience of the Biological and Chemical Oceanography Data Management Office (BCO-DMO), along with an RCN Steering Committee that comprises expertise in the fields of oceanography, data science, earth system models, statistics, and data synthesis.